Snowmass 96 - 1996 DPF/DPB Workshop on New Directions for High Energy Physics

This grant provides partial support to participants in the Workshop New Directions for High Energy Physics planned by the Division of Particles and Fields (DPF) and the Division of Physics of Beams (DPB) of the American Physical Society (APS). The Workshop will be held June 25 through July 12 this year in Snowmass, Colorado. The goal of the Workshop is to `...begin to develop a coherent plan for the long term future of the U.S. high energy physics program in the LHC (Large Hadron Collider) era.`